The Weather Underground: Application of Computer Technologyto Science in Michigan Secondary Schools

The scientific community is challenged by the need to reach out to students who have traditionally not been attracted to engineering and the sciences. This project would provide a link between the University of Michigan and the teachers and students of secondary education in the State of Michigan with an initial emphasis on southeast Michigan, through the creation of a range of computer services which will provide interactive access to current weather and climate change information. Taking advantage of a unique computer network capacity within the State of Michigan named MichNet which provides local phone ports in virtually every major city in the state, and the resources available to the university community via the University Corporation for Atmospheric Research (UCAR) UNIDATA program, this project would provide secondary schools with access to a state-of-the-art interactive weather information system. The real-time data available via the system, supplemented by interactive computer modules designed in collaboration with earth science teachers, will provide animated background information on a range of climate and weather related topics. While the principal objective of this project will be to provide educationally stimulating interactive computer systems and electronic weather and climate modules for application in inner city Detroit and its environs, the unique nature of the available computer networking will allow virtually every school system in the state to have access. Subsequently successful completion of this project could eventually make the same systems available to other cities and states.